Improved Means of Trailer Base Drag Reduction

Under an SBIR phase II grant, research will be carried out to further improve the configuration and performance of drag-reducing devices, developed under earlier grants, to be fitted to the back of tractor-trailers. The effect of cross- winds, surface roughness, and further configration refinement is to be investigated. The research may facilitate significant fuel savings in the trucking industry.